RUI: Analysis of Optimal Design

In designing structures or mechanical systems subject to variable dynamic loads, such as wind gusts or earth tremors, the theoretical results for the optimal shapes exhibit a pattern of discontinuous solutions. These theoretical predictions are not supported by numerical results. In addition, when a structural shape is designed to meet a worst-case, the resulting design has a new worst-case. If the design is modified to meet the new worst-case, the worst-case again shifts. There is no guarantee that this process will converge to an optimal design. A method of simultaneous optimization and control is developed in contrast to the iterative method described above. Such a procedure would lead to more robust designs and would free the designer from fruitless iterations during the design process.